Upgrading of the Environmental Chemistry Laboratory through the Implementation of Water and Air Quality Surveillance Stations

Equipment needed to establish two continuous sampling and monitoring stations; one for air, the other for water surveillance, has been recently acquired by the Chemistry Department at Humacao University College. The availability of these two systems has significantly enhanced the Environmental Chemistry laboratory experiences of students enrolled in both the Associate Degree program in Chemical Technology and the Baccalaureate Degree in Industrial Chemistry curriculum. The air station continuously monitors basic air quality parameters such as carbon monoxide, sulfur dioxide, ozone, organics, heavy metals, and particulates. The water station continuously monitors basic water quality parameters such as temperature, pH, dissolved oxygen, organics, and heavy metals.